CAREER: Higher Singularities and Birational Geometry in Positive and Mixed Characteristics

Algebraic geometry is a field of mathematics that studies shapes described by polynomial equations. These shapes, known as algebraic varieties, appear in many fields of mathematics and have applications in other areas of science, such as computer science, biology, or robotics. The research in this project focuses on the study of algebraic varieties and their singularities. The project aims to develop new mathematical methods and theories to advance human understanding of these objects. In addition to addressing major problems in the field of algebraic geometry, the project also includes the organization of workshops, conferences, and other events--some specifically for students and early-career mathematicians--as well as the composition of expansive research notes and survey articles. The principal investigator will continue to incorporate advances in artificial intelligence (AI) in education--a direction in which the principal investigator has a substantial record--by familiarizing students with the formalization of mathematics and related modern AI tools.

More specifically, this project centers on the study of algebraic varieties in positive and mixed characteristic, with a focus on Hodge theory in arithmetic contexts and its connections with commutative algebra. The project has three main research goals. The first is to better understand analogues of Hodge modules in positive characteristic, applying results to birational geometry and commutative algebra. The second goal is to investigate singularities in mixed characteristic, with a focus on jumping numbers and inversion of adjunction. Finally, the project aims to develop arithmetic birational geometry, with an emphasis on the abundance conjecture. Over the past decade, birational geometry in positive and mixed characteristic has become a central area of research, fostering new connections across mathematics. Meanwhile, the behavior of higher differential forms in positive characteristic remains less understood. The project will take advantage of advances in the theories of Riemann-Hilbert correspondences, higher singularities, and F-gauges, which promise deeper insight into Hodge modules in arithmetic settings. As the project addresses problems at the intersection of algebraic geometry, commutative algebra, and arithmetic geometry, it has strong potential to stimulate interdisciplinary collaboration and drive future developments in these fields.